IUCRC Evaluator of the Center for Microcontamination Control

9416396 Tansik This project funds an evaluator to study the industry/university interactions occurring in the University of Arizona's Industry/University Cooperative Research Center for Microcontamination Control. The three-year study will access the extent of interactions occurring in the Center between the industry members and faculty and students. The evaluator is a nationally recognized researcher and well qualified to perform this project. The Program Manager recommends the University of Arizona be awarded $24,000 for three years for this project.